PECASE: Perceptual Issues in Data Visualization: Conveying 3D Shape and Depth through Texture

Visualization - the visual representation of information through images -
is vital in a broad range of scientific and medical applications. A good
visualization conveys the essential information in a complex dataset
clearly and effectively, emphasizing important features and minimizing
extraneous detail. The usefulness of a particular visualization technique
can be quantified in terms of the extent to which it improves task
performance for a given application. This makes it possible to compare
different methods or to pick optimal parameter values for a given method.
The process of designing an effective visualization, however, remains for
the most part a black art, terribly ad hoc, largely guided by intuition.
The PI's research is a quest for a deeper understanding of the science
behind this art, guided by theoretical and experimental insights from human
visual perception. This can be used to enhance all computer interfaces
that use elements studied here.

Specifically, the focus of the research is to investigate
perceptually-based methods for more effectively conveying the
three-dimensional shape and relative depth of smoothly curving surfaces in
scientific datasets. Key applications for this work include the
visualization of superimposed isovalue surfaces in 3D scalar fields, and
the combined visualization of external and internal structures in medicine
and CAD. The investigator will begin by using controlled observer
experiments to thoroughly evaluate texture as a device for enhancing the
perception of shape. This will identify and quantify the key aspects of
texture in interface design. The investigator will also pursue the
automatic generation of non-photorealistic, pen-and-ink style
representations of arbitrary polygonally-defined objects for interactive applications.
The advantage of such techniques is that some datasets need to be represented in a more
subtly indicative style than traditional graphics renderings. Complementing
the research component of this project is an educational component,
directed at both undergraduate and graduate students, aimed at inspiring
interest and fostering creativity through hands-on experiences in
visualization.